An Immunological Method for the Study of Predation on MarineMicrozooplankton

The utilization of microbial organisms as prey by suspension feeding copepods currently is thought to be a significant part of marine planktonic trophodynamics. However, experimental evidence for this link is indirect because soft bodied prey such as ciliate protozoa do not leave visually identifiable remains in copepod guts or in fecal pellets. Dr. Ohman will use immunological methods for identifying microzooplankton remains in copepod gut contents. The work entails several steps, including; 1) the production of antisera to nonloricate ciliate protozoa; 2) elimination of undesired cross reactions; 3) determination of assay sensitivity and specificity; 4) determination of gut residence time of anitgens; 5) calibration of ingestion rates; 6) preliminary investigation of nearshore copepods for ciliate antigens. Immunoassays will be done by a dot blot assay (ELISPOT; enzyme-linked immunospot). The concept of a food web by which organic material is synthesized by plants and redistributed by grazing processes is similar in both terrestrial and aquatic environments. However, the nature of the marine food web is distinct in that much of this trophic activity takes place among microorganisms. It is often difficult to identify the structure of the food web composed by these small particles, much less to quantify the extent to which certain organisms are preyed upon by others. Dr. Ohman will apply techniques developed in molecular biology to address one of the more problematic predator-prey relationships in plankton ecology - that of marine protozoans without hard parts and marine zooplankton. There is presently little information on this potentially important link in the planktonic food web, and this novel approach may provide a quantitative technique to analyze the importance of these soft bodied protozoa to larger maine organisms.